Computer Facility for Laboratory-Based Introductory Biology Course

9452361 Peroni This proposal requests $42,325 for the purchase of MacIntosh computers, software and accessory equipment to outfit a computer facility for introductory biology. The computers are necessary for the addition of investigative modules to the three course introductory series for biology majors. Computers have not been previously integrated into introductory courses at Davidson, except on a very limited basis. Computer facilities appropriate to introductory biology laboratory exercises are not currently available on campus. The research-based modules will be integrated into all three introductory courses. All students passing through these courses will then have exposure to: 1) exploring theoretical concepts using computer simulations; 2) design and execution of small group research projects; 3) critical thinking and writing exercises. This introductory curriculum will prepare students for a more in-depth exposure to investigative courses at the junior and senior level, as well as to prepare them for independent research projects and graduate school. The computer facility will be used by all introductory students. The introductory courses will seat approximately 384-448 students each year. Multiple sections of each course are offered each semester.